Research Program in Intermediate Energy Physics

This award supports research in connection with experiments in meson
spectroscopy. The primary effort is directed at the RadPhi experiment,
which aims to measure the radiative decays of the phi(1020) meson to
scalar states a0(980) and f0(980) in phi photoproduction. The
experiment has collected its data during a 60-day run in summer 2000,
and is in the final stages of data analysis. The P.I. is spokesman of
Radphi. In addition to radiative decays, the Radphi data also contain a
number of all-neutral final states in photoproduction at 5 GeV, which
are being studied using partial-wave analysis. These studies are a
significant contribution to preparations for the GlueX experiment, which
undertakes a comprehensive analysis of both charged and neutral final
states in photoproduction at 9 GeV. Within the GlueX experiment, the
UConn group has responsibility for the coherent photon source and
tagger, and for physics simulations.